Instrumentation to Develop an Analytical Chromatography Laboratory for Undergraduate Biology.

With the high performance liquid chromatograph and gas chromatograph procured through this project, undergraduates in this Department are integrating theory and practical experience through applying the techniques of separation technology across a wide range of biologically important classes of chemicals. Naturally occurring or synthetic substances in the environment are discussed and are being identified or quantitated by laboratory procedures that are presented in a broad spectrum of courses. Providing hands-on laboratory experience brings a depth of understanding of modern Cellular/Molecular Biology and Biochemistry that cannot be conveyed through lectures alone.